CAREER: Amphibians, Reptiles and Small Mammals in the Tsaratanana Massif Complex of Northern Madagascar

The research objectives of this CAREER project are (1) to complete a survey of amphibians, reptiles, and small mammals (and their co-evolved parasites) at 15 sites in the Tsaratanana Massif Complex of Madagascar; (2) to describe new species, revise taxonomic groups, and produce species lists, monographs, keys, and field guides; and (3) to establish website accessible database that can be used for future research work and conservation planning. Survey results are expected to include new biogeographic and systematic data for an estimated 350 species of amphibians, reptiles, and small mammals, including the discovery about 50 - 150 undescribed species of vertebrates. The teaching objectives of the CAREER proposal will be the introduction of a new course, linking via satellite phone, ongoing survey activities in Madagascar to students, and involving undergraduate and graduate students in field-work, curation, and data analysis. This project will be jointly funded by the Biotic Surveys and Inventories program and the Africa program in the Division of International Programs.